The Mio-Pliocene of the Middle Awash Valley, Ethiopia

Multidisciplinary research in the Middle Awash, Ethiopia, is revealing important new dimensions of human origins and evolution. This funding supports paleontologists, geologists, and geochronologists. These project scientists are coordinating their efforts to reconstruct environments and to document physical, biological, and technological change in Africa over the last six million years. Data on topics as diverse as global climatic change (revealed by connections with adjacent deep-sea drill cores from the Arabian Sea and Gulf of Aden), the paleohabitats of the earliest hominids (revealed by isotopic studies, fossil pollen, and micromammals), and the geological evolution of the Horn of Africa (revealed by stratigraphic and geochronological work on the volcanic rocks interbedded with the fossiliferous sediments) will be generated by the project. Research targets include the oldest hominid-bearing sediments in Africa, at Aramis, Sagantole, and Kuseralee Dora. The team will excavate sediments of the Central Awash Complex in an effort to recover human ancestor remains from between volcanic rocks dated to 4.4 and 5.2 myr. Reconnaissance of the western margin of the study area has revealed even older sediments. A major effort will be made to date these rocks radiometrically, and to extract faunal remains from them, including even older hominid fossils that should approach, and possibly predate, the human/ape divergence. The research project has established that the Miocene and Pliocene sediments of the Middle Awash are the most important in the world for revealing the earliest stages of the human career. The hominid fossils already recovered there are over twice as old as those from the bottom of Olduvai Gorge, and over a million years older than Lucy. The proposed three years of research will gather comprehensive paleontological data sets for these areas from precisely controlled spatial, temporal, and environmental contexts. This research will open new windows on the deep past.